Europtrode XI Conference, Barcelona, Spain, April 1-4, 2012

Tuan Vo-Dinh
1239156

This project involves the organization of the conference EUROPT(R)ODE XI, which is part of
the Europt(r)ode Conference series, which encompasses all aspects related to the research,
development and applications of optical chemical sensors and biosensors.
Intellectual Merit
The EUROPT(R)ODE XI Conference, to be held in Barcelona, Spain, April 1-4, 2012, will
discuss the latest advances in this competitive and evolving field of optical sensors. The
Conference is the premier worldwide forum for the presentation of innovations in optical
sensing, showing both cutting-edge integration concepts and key emerging trends in a highly
multi-disciplinary atmosphere. This biannual Conference presents an exceptional opportunity,
of interest to both academic and industrial researchers, to discuss and exchange the latest
developments in this extremely challenging field. There is no other Conference specifically
devoted to optical (bio)sensing, thus making this meeting unique at the international level.
Broader Impact
The Europt(r)ode conference series has become a major scientific meeting on optical chemical
sensors and biosensors attracting scientists and educators from across the globe. Because of the
multidisciplinary nature of the field, Europt(r)ode has always brought together a diverse
audience including scientists and engineers in physics, chemistry and biology all over the world.
Their engaging discussions have stimulated interdisciplinary and international collaborations
and helped shape scientific and academic institutions from which several generations of PhD
students have graduated. The Conference has also fostered increasing collaborations between
academia and industry and stimulated countless new commercial spin-offs in the field.
Companies participate regularly not only at the level of exhibitors but though invited and oral or
poster presentations. The Conference in 2012 will have, as a main novelty, an exclusive
Industrial Session by invitation, where the main industrial players in the field will highlight
scientific innovations and technological transfer in the optical sensing field.